Upgrades to Lamont's Marine Geology and Geophysics Workstation Network for Analysis, Visualization and Numerical Modeling with Large Datasets

The oceanographic instrumentation program supports requests to acquire instrumentation for the collection, processing and analysis of oceanographic data. This proposal from Lamont-Doherty Geological Observatory (LDGO) requests funding for a computer network that will be used to maintain and analyze data acquired through NSF-funded research efforts and to support geodynamic modelling efforts. The equipment to be purchased includes a high performance server, three high performance workstations, a large capacity data storage system and plotting devices. LDGO will supply matching funds for the purchase of the equipment which will supplement the existing LDGO computer system. The new system will be used extensively by students, and databases maintained on the system will be available to researchers and students nationwide and worldwide via INTERNET.